Development of an X-Ray Facility

This X-Ray facility will provide a rotating anode x-ray generator with accessories, a four-circle diffractometer and a two-circle diffractometer to scientists at the University of California, Santa Barbara. Research projects include studies of self-assembled biomaterials, polymer liquid crystals and copolymers, small angle x-ray reflectivity of thin complex fluid films, wide bandgap semiconductors, thin film and bulk ferroelectric oxides. This facility will provide a much needed high intensity source for material characterization and will complement facilities to be provided through the new Materials Research Laboratory being established at the University. This facility is being made available to all qualified users, and will provide first-hand experience to students and faculty.